CAREER: Reconfigurable Architectures for Highly Adaptive and Energy Efficient Wireless Networked Computing Nodes

Time varying environments and limited battery energy are two key hurdles on the route to distributed multimedia systems with wireless network links. This project is exploring architectures, protocols, and algorithms to overcome these hurdles for mobile users. In particular, the research is exploring the use reconfigurability in wireless nodes to allow algorithms and protocols to adapt to evolving environments. The reconfigurable wireless node leads to interesting system-level concepts such as hardware applets, in which hardware datapaths can be downloaded and instantiated on demand from network servers. The educational component of the project is based on tightly integrating the proposed research with new graduate and undergraduate courses. The research topics will be explored in project-oriented graduate courses on mobile multimedia information systems and wireless terminal design. Selected prototyping tasks will be used as projects in undergraduate design courses.